Architecture and Evolution of an Accretionary Orogen

Much of Earth's continental crust comprises Precambrian through Cenozoic orogens,
where preexisting rocks have been variably modified by metamorphism and deformation. Owing
to the association between collisional tectonic events and mountain building, this long record of
orogenesis provides the most accessible means of reconstructing paleotectonic settings and
events that have shaped our planet. Although the Appalachian mountains are widely used to
illustrate Earth's tectonic evolution and associated orogenesis, collisional processes and events
that drove the Ordovician Taconian orogeny in the Quebec Maine segment of the northern
Appalachians remain enigmatic. Deformational features in this region cannot be satisfactorily
related to a specific convergent setting or collisional event(s) because the nature of the eastern
(present coordinates) Laurentian margin during the early Paleozoic is poorly understood.
Interpretations are divided as to whether the orogeny was caused by ophiolite emplacement,
island-arc collision, or microcontinent collision. Because the Taconian orogeny initiated the
Appalachian mountain-building cycle, understanding its architecture and evolution is essential
for understanding the Appalachians as a whole.

The PI proposes to investigate structural, metamorphic, and temporal relationships among the
rock units that make up the Chain Lakes massif and Boil Mountain ophiolite in order to test
competing models and hypotheses for the Taconian orogeny in the northern Appalachians. Their
multidisciplinary approach incorporates mapping, structural, microstructural, metamorphic, and
geochronological studies. Integrating field and laboratory studies, the PI will establish: (a) the
relative and absolute timing of metamorphic and deformational events within the Chain Lakes
massif, (b) the crystallization age of the mafic portion of the Boil Mountain ophiolite, (c) the age
and kinematics of ophiolite emplacement, (d) whether mafic volcanic rocks near the ophiolite
represent a genetic part of the ophiolite, and (e) the age of possibly rift-related mafic dikes in the
Chain Lakes massif. The geochronology portion of the project will include in-situ U-Pb analyses
of monazite to provide high temporal resolution for metamorphic events, small-number
multigrain U-Pb analyses of zircon or baddeleyite from gabbro to determine the crystallization
age of the ophiolite, U-Pb analyses of zircon to establish the age of the dikes, and laser step-
heating 40 Ar- 39 Ar analysis of muscovite to determine the minimum ophiolite emplacement age.
The PI will compare his results with existing interpretations of the Thetford Mines ophiolite and
overlying units in southern Quebec, the Maquereau Dome in the Gaspe Peninsula, and the
Dashwoods Subzone in Newfoundland in order to evaluate temporal and spatial relationships
among these potentially correlative units. Because the extents and boundaries of terranes are
fundamental components of the tectonic models, testing the terrane relationships will test the
models. The work will clarify the nature of the Taconian orogeny in the northern Appalachians,
and will bear on conceptual models describing Iapetan paleogeographic reconstruction and
collisional accretionary processes.